CAREER: Tripodal Aryloxide Ligands: From Molecular Receptors to Organometallic Catalysis

This CAREER award in the Inorganic, Bioinorganic, and Organometallic Chemistry Program supports research and education on structurally defined ligands by Dr. Michael Scott of the Chemistry Department, University of Florida. A new class of tripodal aryloxide ligands with a preorganized bowl-like shape will be synthesized. The ligands can be adjusted by chemical modification to selectively bind various metal ions or to alter their reactivity. Some of the ligands are sufficiently rigid that they can be used in the assembly of supramolecular structures containing metal ions. The ligands have three binding sites and so binding of more than one metal center to the ligand backbone is possible, yet oligomerization is inhibited.

Compounds containing aluminum will be prepared which will be useful as robust catalysts for alkylations, cycloadditions and many other chemical reactions. Undergraduate students involved in the project will learn about molecular recognition and catalysis, in addition to skills in synthesis and characterization. The educational component of this CAREER Award will focus on developing a course in inorganic biochemistry for biochemistry students and on offering an undergraduate research course in the department.